Development of Low Density Titanium Alloys

9901642
Froes

The research project is directed towards creating innovative low-density structural titanium alloys. Phase I of the program is process oriented, aimed at incorporating low-density magnesium into titanium using two non-equilibrium methods of alloying, mechanical alloying and physical vapor deposition. The goal is to extend the solid solubility of Mg in the Ti-Mg alloy system; an additional consideration is the effects of incorporating other lightweight elements (aluminum, silicon, and scandium) into the alloys. Once the processing has extended the solid solubility in the precursor material, the alloys are compacted using low temperature techniques that attempt to avoid excessive phase coarsening. The microstructure is characterized at various stages of the research with particular interest in dispersions of second phase precipitates that might occur. If the research in Phase I is successful, Phase II looks toward scaling up the process to create larger amounts of the promising alloys for analysis.
%%%
Titanium alloys are attractive for structural applications because of their high specific strength, excellent environmental resistance, and good fracture-related behavior (fracture toughness and fatigue crack growth rate). This work could lead to the development of a new family of low-density structural titanium alloys with major impact on the transformation industries.
***